PIRE: Ecological and Evolutionary Effects of Climate Change and Anthropogenic Influences in Mongolia

ABSTRACT

Proposal No.: 0729786
PI Name: PETRAITIS, Peter S.
PI's Institution: University of Pennsylvania
Proposal Title: PIRE: Ecological and evolutionary effects of climate change and anthropogenic influences in Mongolia

This PIRE project examines the ecological, evolutionary and societal consequences of increased grazing pressures and rising temperatures in the Lake Hovsgol region of Mongolia. Climate models predict significant temperature increases in Mongolia. Increases in both temperature and the length of the growing season are already apparent in northern Mongolia, and this is of special interest to both scientists and governmental officials concerned with the impacts of climate change on the environment and the livelihood of local people. This PIRE project is a collaborative effort between ecologists, evolutionists and anthropologists at the University of Pennsylvania, Academy of Natural Sciences of Philadelphia, Mongolian Academy of Sciences, Mongolia University of Science and Technology, and National University of Mongolia. Advancing the training of undergraduates, graduate students and faculty from Mongolia and the U.S. is a major goal of the project and includes capacity building within the Mongolian scientific community and the training of U.S. students in a way that encourages their continued involvement in global research. The project develops an infrastructure that will enable long-term scientific exchanges to extend beyond the duration of the grant. It also provides a template for conducting international collaborative research and educational efforts in other regions facing rapid shifts in environmental conditions.

This project focuses on understanding the combined effects of grazing and climate change in a region that is used by nomadic herders and is home to two important ecosystems (the taiga forest and the steppe grasslands). The project integrates monitoring, experiments and modeling because of the complex interactions between climate change, land use by and movements of nomadic herders, and differences in ecosystem processes in taiga forests and steppe grasslands. Monitoring includes meteorological conditions, permafrost depth, hydrological cycles, ecosystem processes, and activities of nomad families and their livestock. Controlled experiments in the field examine how temperature increases and grazing affect plant community composition, phenology, productivity, litter decomposition and soil respiration. The project also addresses long-term responses of the forest ecosystem by examining carbon and oxygen isotope ratios of tree rings because long-term alteration of evaporative flux could affect regional precipitation and ecosystem sustainability. Modeling efforts emphasize the integration of results that can inform the development of new research questions, governmental policy and sustainable practices in the context of climate change. The research is of practical importance to the Mongolians, who are actively developing policy on land preservation and management, and to scientists worldwide, who strive to understand the future consequences of global warming.

The project is funded by the Office of International Science and Engineering (OISE) through the PIRE and the biocomplexity initiative and the Ecosystem Science cluster of the Division of Environmental Biology (DEB) in the Directorate of Biological Sciences (BIO).